CS&E Postdoctoral Associate Proposal: "Parallel Systems forMachine Learning in Vision"

This award is for a postdoctoral associate in Experimental Science. The associate, Jerzy Bala, will be working on parallel algorithms for computational learning.